Modeling of Nanoscale MOSFETs

The purpose of the proposed research effort is to develop methodology which
allows simulation of effects playing an important role in nano-scale
devices, within the framework of existing device simulators. The important
underlying mechanisms are, on one hand, quantum effects such as tunneling
and quantization, and, on the other hand, many-body effects, electron-ion
interactions and single-dopant effects. The goal of the project is to
include these effects into existing models and codes in such a way, that
their influence on device performance is accurately represented, while
simulations can be made at a computational cost comparable to that of
existing particle-based device simulators. The basic approach to achieve
this goal consists of the use of novel forms of effective quantum potentials
and quantum versions of existing particle-based approaches to simulate
short-range many-body interactions. Comparison will be made with
experimental data provided by the Nanostructures Research Group at ASU, and
Intel and Motorola. The calibrated tools can help device designers in
fabricating optimal device structures with a reduced cost. The educational
effort of this project will be closely tied to the proposed research
activities. This will be accomplished via specially developed
interdisciplinary courses in a classical as well as a distance learning
format, and through the direct participation of students in the research
project on the graduate as well as the undergraduate level. Course
materials will be developed for this purpose and will be placed on the
Computational Electronics Hub that is being developed as part of an existing
NSF sponsored project.